Multipurpose Undergraduate Computer Graphics Laboratory for Geosciences

The Department of Geology and Geography is equipping a computer graphics laboratory to support the teaching of a cluster of classes at all undergraduate levels in Physical Geography and Cartography. Students enrolled in science core curriculum classes in meteorology and climatology are using the equipment in conjunction with the reception and analysis of satellite weather data. Students in advanced classes use the laboratory in the study of data structutres, conversion between coordinate systems,